1996 Solid-State Sensor & Actuator Workshop - Participant Support, June 2-6, 1996, Hilton Head, S.C

9634619 Muller Support is requested for graduate student participation in the 1996 Solid-State Sensor & Actuator Workshop. Graduate students typically are engaged in sensor and actuator research. The Workshop will have a long range impact on the engineering and scientific communities concerned with sensors and actuators. ***